Theoretical Studies of Subgrain Formation and the Evolution of Texture in Metals

9414376 Havner The objectives of this research are a comprehensive assessment of hardening theories against experimental data through investigation of their finite-strain texture predictions in f.c.c. crystalline aggregates and mathematical prediction and analysis of the basic experimental phenomenon of progressive subgrain formation (including microshear bands in subgrain walls) during plastic deformation. Achievement of these objectives would provide a comparative assessment, previously unavailable, of hardening theories in relation to texture formation in specific metals and an analytical basis for continued subgrain formation and microshear- band development with increasing deformation. This study has the potential to develop models and constitutive equations that will enhance the understanding of large deformation processes in metals and could lead to the development of new computational codes. Such codes might be useful for the prediction of the results of metal forming and manufacturing processes. ***